Continental Crustal Composition and Evolution: Constraints from Receiver Function Analysis

The project is aimed at providing new or refined constraints
on models of evolution and composition of the continental crust,
by simultaneously measuring crustal thickness, Poisson's ratio
which can be uniquely determined by the ratio between P and S-wave
velocities, and crustal P-wave velocities beneath about 200 broadband
seismic stations distributed all over the continents.
About 80,000 source-normalized broadband seismograms will be
visually checked and used for the proposed study. A set of computer
codes that the PIs developed to search for the optimal combination
of the three parameters beneath a station will be used for the study,
and the bootstrap procedure will be used to estimate
the errors of the measurements. The existence of dipping Moho
beneath each of the stations will be examined. Another part of
the project is for the collection of a set of published tectonic
history and petrological data obtained from lower crustal xenoliths
or terrains related to the composition and evolution of the lower crust
inthe vicinity of each of the stations. Those geological data will
be used for the interpretation of the seismological results.

Expected results from the proposed work will be used by
geochemists, mineral physicists, and geodynamicists to address a
broad range of important questions regarding the formation and evolution
of early crust and mantle. Thus this study should have an impact that is
beyond the seismological community.